REU-Site for Biotechnology

9424103 Jackson Through this award, the Directorate for Biological Sciences and the Advanced Technological Education (ATE) program of the Directorate for Education and Human Resources award will provide support for an innovative summer program that targets students from two year colleges, a student population that typically does not participate in REU-sites programs. During the first two summers, participants will be extensively trained in various techniques used commonly in molecular biology and biotechnology research at the Massachusetts Bay Community College in Wellesley Hills, MA. During the third summer, participants will use this technical knowledge to pursue independent research at the Marine Biological Laboratory in Woods Hole, MA or the Science Park biotechnology center in New Haven, CT. The aim of the program is to equip students with the confidence and experience necessary to enter and complete post-baccalaureate training in science. ***